Fiber Reinforced Thermoplastic Polymer Blends: Processing Microstructure-Fracture Resistance Relationships

The work aims to develop understanding on toughness microstructure relations in selected polymeric composites. The matrices investigated are the polycarbonate and polybutylene terphthalate. Improved understanding of mechanisms of toughening associated with crack wake effects and crack front toughening is sought. The fracture toughness will be investigated by J-Integral fracture mechanics test methods. Direct in situ observation in the microscope of deformation and fracture ahead of crack tips will be also conducted to gain a physical understanding of the toughening phenomena.